Mathematical Sciences: Algebraic Topology and Its Interactions With Representation Theory

Although historically distinct, algebraic topology, group theory, and representation theory have increasingly interacted. Algebraic K-theory and work on classifying spaces of finite groups are good examples of this. Professor Kuhn has long been interested in such overlaps, most recently in his work relating Steenrod algebra technology to group representation theory. Here he will study various topics in this spirit. One project consists of using his representation theoretic tools to study some very classical types of topological realization questions. Another consists of using these same tools to study state-of-the-art questions in algebraic K-theory. A third involves applying algebraic K- theoretic methods to the group ring isomorphism problem. The details of these three parts vary, but all are concerned either with reducing geometric information to a subject for calculation or to perfecting one of the principal algebraic tools used for this purpose. The nature of the geometric information involved is the crux of the difficulty. While questions about lengths, areas, angles, volumes, and so forth virtually cry out to be reduced to calculations, it is far different with what are known as topological properties of geometric objects. These are properties such as connectedness (being all in one piece), knottedness, having no holes, and so forth. All systematic study of such properties, for example, how to tell whether two geometric objects really differ in respect to one of these properties or are only superficially different, or how to classify the variety of differences that can occur, all these have only truly been comprehended and mastered when they have been reduced to matters of calculation. Algebraic K-theory has been developed into a major tool for this purpose, and the interplay between the algebra and the topology involved remains a fascinating subject.